Geographic Distribution of Bathypelagic Calanoid Copepods

In studies of midwater trawl samples, large numbers of endemic bathypelagic calanoid species have been found in the Antarctic, all of which were more abundant than the cosmopolitan species found in the same area. These findings are contrary to the general perception that the bathypelagic calanoids are are cosmopolitan and rare because of the uniformity of physical condition and the scarcity of available food in deep waters throughout the world's oceans. A possible explanation is that the Antarctic bathypelagic endemic species are those adapted to euthrophic conditions of the Antarctic, whereas the cosmopolitan species are those adapted to oligotrophic conditions. The study proposed here is to test the hypothesis by investigation of the deep-living calanoids concerning their morphology, geographic distribution, and relative abundance at many different locations of the world's oceans. Both eutrophic upwelling and oligotrophic oceanic areas will be examined for comparison of the effect of general productivity of overlaying surface waters. The calanoid genera selected for the study are Euchaeta, Pseudochirella and Onchocalanus. These genera have already been studied in the Antarctic and found to be important constituents of the bathpelagic calanoid assemblage, with many endemic as well as cosmopolitan species. The samples for the study will be selected mainly from midwater trawl collections available at the Smithsonian Oceanographic sorting Center and Scripps Institution of Oceanography. The study will accomplish two objectives: 1) Answering the question of whether the bathypelagic calanoid assemblages comprise, as in the epipelagic communities, eutrophic endemic species confined to waters of high productivity and cosmopolitan oligotrophic species ranging widely in the world's oceans. 2) Clarifying the systematics and biogeography of some bathypelagic calanoid taxa, important but poorly known groups in the zooplankton.